Partnership in Technology for the Physical Sciences

Ninth grade physical science modules will be developed and tested with the dual objectives of bringing new content into the subject and of involving students in computer usage in a way which will help prepare them for entry into today's computer-based job world. These modules will be developed by the New York Board of Education staff in partnership with IBM for computer expertise, the New York Academy of Sciences and Columbia University School of Engineering for technical content guidance, and Hofstra & Hunter Colleges for input from research on computer-aided learning. Fourteen modules will prepared, test- taught, revised as needed, and issued. Teachers in each borough will be given necessary training to allow introduction into the regular curriculum. The modules will also be made available for dissemination outside the New York City system. Cost sharing by the New York City Board of Education and IBM will total $195% of the NSF funding.